Distributed Systems with Sift, Based on COTS

Abstract:
The main objective of the proposed research is to develop novel
Software-Implemented Fault Tolerance (SIFT) techniques for increasing
the dependability of the distributed and networked environments based on
COTS.
The issues of dependability will be addressed by the design and
implementation of (SIFT), dynamic reconfiguration in distributed systems
and high-speed computer networks. Novel fast dynamic reconfiguration
techniques for various irregular network topologies will be developed and
analyzed. An analytical method is proposed for evaluating the reliability
improvement by using SIFT for any size of distributed systems .
The goal of this research is to identify and develop new key building
blocks
for reliable distributed systems built with inexpensive off-the shelf
components. The platform consists of computing nodes connected via
multiple interfaces to networks configured in fault-tolerant topologies.
Thus, the research community and a large number of users will have the
opportunity to build reliable distributed systems based on COTS in a user
transparent way.The goal will be to achieve a high reconfiguration rate
and a small recomputation overhead in the presence of faults in the
distributed
systems and high-speed computer networks in a way transparent to the user,
which will provide a high dependability.
This research project will have a positive impact on a large community
implementing applications in distributed and network environments such as
: e-commerce, telepresence, telemedicine, Internet data centers,
distributed applications running concurrently across